A Computer Graphics and Game Development Track in Computer Science

Computer Science (31)

The "A Computer Graphics and Game Development Track in Computer Science" project is developing a curriculum track for 3D graphics and game development.

Intellectual Merit: This project is evaluating how to teach 3D computer graphics and gaming within the tight constraints of a modern undergraduate computer science curriculum. They are introducing a sequence of courses which teach fundamental computing concepts to students in a multidisciplinary fashion.

Broader Impact: The project is exploring how computer graphics and gaming courses can increase both enrollment and retention in undergraduate computer science. They are exploring if modest intervention methods can increase the appeal of game programming in particular, and computer science in general, to women. They are developing and assessing a well structured template for a suite of courses which could be adopted and adapted by similar institutions. The PIs are disseminating their results through presentations at both regional and national conferences.